Effects of Water on Electrical Conductivity in Majorite

Electrical conductivity of minerals is sensitive to temperature and
defect chemistry (such as the concentration of hydrogen-related
defects), but less sensitive to major element chemistry or pressure.
Consequently, a comparison of geophysically inferred electrical
conductivity with laboratory data will provide important constraints
on temperature and water content. However, experimental studies on
the role of hydrogen-related defects on electrical conductivity are
challenging and very few data are available to provide a basis for
such studies. To achieve such a goal, the PI and his colleagues have
recently determined the relation between electrical conductivity and
water content in wadsleyite and ringwoodite. However, such
relationship has not been determined experimentally for another
important mineral, majorite garnet, and consequently, the
relationship between water content and electrical conductivity in the
transition zone is uncertain. In this project, an experimental study
on the role of hydrogen-related defects in the electrical
conductivity in majorite will be conducted through high-pressure,
temperature experiments. The results will provide a solid basis for
inferring water (hydrogen) content and temperature in Earth's
transition zone.